Science Teachers Learning from Lesson Analysis (STeLLA): High School Biology

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project will develop and test a biology teacher professional model that employs analysis of videotaped lessons to promote increased biology content knowledge and pedagogical content knowledge among practicing biology teachers. The content of the professional development activities will focus on the crosscutting concepts of stability and change that link core ideas in three areas of biology: cell biology, heredity, and evolution. These are content areas that have been shown to be difficult for students to learn, and difficult for teachers to teach. The professional development model will include: a) a summer institute where teachers gain new knowledge and skills in biology and learn to analyze videotaped lessons; b) opportunities to teach project-developed lessons during the academic year; and c) study group sessions during the academic year where participating teachers analyze videoclips of their own teaching.

The project will design, develop, and test a teacher professional development model that is based on a previously developed approach that has been shown to be effective among elementary school teachers. It is hypothesized that the newly developed program will have a positive impact on the science achievement of high school students, that it will improve teacher science content knowledge and classroom practice, and that the effects on student outcomes will be equitable across student demographic variables. To test thee hypotheses, the project will employ a quasi-experimental research approach in which teachers will serve as their own comparison groups in a cohort control design. Hierarchical linear modeling will be used to differentiate the effects of variances in teacher content knowledge and pedagogical content knowledge, student demographic variables, and school factors. It is anticipated that the project will find evidence that the proposed approach to biology teacher professional development has the potential to close the achievement gaps among student populations.